Low Cost NMR Instrumentation

RF technology developed for cellular phone and global positioning systems (GPS) was used in a SBIR Phase I project to design and build an amplitude modulator and a frequency synthesizer. Thus, new RF technology was found to be feasible for use in reducing the cost of NMR instrumentation substantially. In SBIR Phase II newly available RF components are used to evaluate, design, and build an NMR console. New audio digital signal processing capabilities will be explored, which are currently available from certain computer manufacturers. The research will enhance the demodulation sections of NMR receivers and lower the number of components (and hence cost) without diminishing performance.